Carbon-Carbon Bond-Forming Reactions: Application to the Selective Synthesis of Alkenols and Cyclic Ethers

This research by Dr. David W. Thompson will be funded by the Synthetic Organic Chemistry Program at the College of William and Mary. The research will be carried out primarily by undergraduate students and should provide well trained students who have been involved in new development of new organometallic chemistry. The general goal of the research centers on the development of selective syntheses for 3-alkylidenetetrahydrofurans, 5,6-dihydro-2H-pyrans, and tri- and tetra-substituted allylic and homoallylic alcohols. The projected cyclic ether syntheses are of two types: 1) bimetallic organotitanium/zirconium-aluminum carbometallation of acetylenic acetals followed by vinylmetal/oxocarbocation coupling, and 2) Lewis acid promoted cationic cyclization of acetylenic acetals. Particular emphasis will be placed on the selective synthesis of 3-alkylidenetetrahydrofurans which will be subjected to newer ether cleavage reagents with expectation of producing selectively tri-/tetra-substituted alkenols.